Run-time Code Generation for the Masses

ABSTRACT
0306221
Samuel N. Kamin
U of Ill

We propose to continue our research toward developing a practical system for run-time code
generation (RTCG). We propose first to further improve efficiency and address type safety in our
current, Java-based system, Jumbo. We then propose to retarget Jumbo to perform native code
generation.

Jumbo is a two-level language for producing run-time code generators for Java. In this, it is
similar to several previous systems. Jumbo is distinguished by its practicality: it supports a very
simple model of run-time code generation, gives the programmer complete control over the
generated code, and is implemented in a conceptually simple way, making it particularly easy to
learn and use.